Transport of Colloids in Ground Water: A Chemical-ColloidalApproach

This is an award to support research on the role of solution chemistry, chemical characteristics of the solid- solution interface and colloidal interactions with porous media on the transport of colloids in groundwater. Objectives of this project are to develop a theoretical framework for these phenomena and then to conduct laboratory experiments to evaluate the chemical factors that affect movement of colloids in porous media aquifers. The approach planned in developing the transport model will be to combine fundamental theories of mass transfer, consideration of the hydrodynamics of colloids in porous media, colloidal interaction and stability. The proposal leading to this award was submitted in accord with the NSF Program Announcement: Research Initiation Awards, NSF 88-99. Results are expected to provide a scientific base for characterizing the fate of colloidal particles that are suspended in water as they move through a porous medium such as a groundwater aquifer or a filtration process in a water treatment system. In addition to their role as pollutants, colloidal particles can serve as the vehicle for transport of bacteria and viruses. Results of this research may also be applied to engineering design of systems to isolate aquifers from potential contamination by seepage from hazardous waste disposal sites.